Collaborative Research: Solution of Inverse Problems with Adaptive Models

Inverse problems like parameter estimation, data assimilation, and optimal
control for large scale systems governed by partial differential equations
(PDEs) are of considerable importance in many fields including atmospheric
science and oceanography, optimal flow control, and homeland security.
State-of-the-art solvers for large scale PDEs adaptively refine the time
step and the mesh, and adjust the computational pattern in order to
control the numerical errors and to preserve the qualitative features of
the solution. In contrast, most inverse problems to date have been solved
using non-adaptive methods due to the considerable challenges associated
with obtaining gradients for adaptive simulations.

The goal of the project is to advance the fundamental algorithms needed
for solving inverse problems in the context of adaptive models. The
intellectual merit of this work is substantiated by the following research
elements:
(1) understand the discrete adjoints for methods that use adaptive mesh
refinement, adaptive time stepping, and adaptive computational patterns
(e.g., upwinding or flux limiting);
(2) develop techniques to minimize the inconsistencies between the
discrete adjoint scheme and the (continuous) adjoint PDE;
(3) develop apriori adjoint error estimates;
(4) assess the impact of different adjoint approaches on the performance of
several numerical optimization schemes; and
(5) apply the new algorithms to real data assimilation problems in
oceanography.
The general algorithms and methodologies for solving inverse problems with
adaptive forward models are expected to have a broad impact on many fields
including atmospheric sciences, oceanography, environmental sciences,
optimal control of flows, structural mechanics, homeland security, etc.